Direction of Rolling Wave of Mammoth Extinction: A Test for Human Overkill vs. Climatic Change Theories

9321404 Guthrie This study will examine two contending theories which account for the tremendous extinction of large mammals about 11,000 years ago. Nearly 80% of the American large mammal species were lost over a rather short period of time. The human overkill theory argues that Paleoindian large-mammal hunters from Asia expanded rapidly into the Americas, overexploiting their prey species. The other theory proposes that a radical ecological shift at the end of the Pleistocene produced such biotic perturbations that many species could not adapt with sufficient rapidity. A new test will examine the geographic pattern of woolly mammoth extinction of a much finer scale that has been attempted previously. Alaska and the Yukon Territory are the focus of this study because they were a critical geographic link between the Old and New World. This project is part of the paleo component of the Arctic System Science (ARCSS) Program. ARCSS is part of the U.S. Global Change Research Program. ***